A Microcomputer Applications Course and Laboratory for All Undergraduate Engineers

This project will develop a sophomore course and associated laboratory required for all engineering students at Purdue-Calumet. It will teach them the fundamentals of embedded microcontrollers using the Embedded Systems Minion Teach module. The goal of the course and the significant laboratory component is to bring to students who have an introductory knowledge of electric circuits and high level language programming a broad knowledge of the design of turn-key, embedded microcomputer controllers.